Studies in Western U.S. Geodynamics

Intellectual Merit:
Three regional studies will address the processes responsible for the tectonic
behavior in each region. The study areas are:
1) Southern California. Study will focus on the cause of mountain
building in the
transform-fault environment of the San Andreas fault;
2) the Sierra Nevada. Study will focus on the tectonic strengths of
the bounding
San Andreas fault and eastern California shear zone and on the nature of the
gravitationally driven extension of the Basin and Range; and
3) the Pacific Northwest. Study will focus on the interplay between the shear
tectonics imposed by Pacific-North America interaction and the
subduction margin,
which varies from weakly to strongly compressive.

These regional studies will be modeled in a manner consistent with
plate scale stresses
and will be used to improve the current plate scale dynamic model.
The proposed research will be accomplished in two and three
dimensions with a finite
element computer simulations that incorporate faults, viscous and
plastic rock deformation
mechanisms, and gravity-driven processes in realistic ways.
This project will produce results that will help to understand the
relative importance
of plate interaction and internal buoyancy driven continental deformation.

Also, improved models of the distribution and rate of deformation
will be produced
based on geodetic and geologic faulting data. These results will be
used both to evaluate
the quality of the computer simulations and to constrain lithospheric strength.

Broader Impacts:
Results will help constrain the strength and behavior of faults,
which is important to
understanding earthquake processes.
This project will prepare a graduate student for the future through
collaborations,
participation in a diverse set of disciplines, and integration of the
range of findings
into consistent results. It also will help foster an international
collaboration.